A Program of Research in Active Sensing

Robotic systems in large-scale environments must carefully manage sensing tasks in order to make sense of the world. This grant is for characterization of optimal sensing strategies in computer vision and touch sensing. Much of the research will focus on maximizing temporal consistency of incoming data, with special study of tactile curvature information and active visual computation of shape from shading. Algorithms will be tested for tactile recognition of objects and visual mapping of object structure.